SHF: Small: User-Centered Software Analysis Tools

The proposed work explores techniques for making static analysis tools
more effective in the hands of users. This will lead to the
development of new static analysis algorithms, techniques, and
interfaces that provide the information users need to find, verify,
and fix defects.

The core of the proposed work will be a framework for static analysis
visualization and interaction, with several components. First, the
framework will include checklists to help users triage defect reports,
i.e., decide whether they are true or false positives. The aim is to
develop ways to instrument static analyses to automatically generate
checklists based on imprecision introduced during the analysis.
Second, the framework will include lightweight query and search
facilities to help users work with static analysis tool results. Users
need effective ways to query the knowledge-base generated by a tool
when trying to understand an error report; current static error
reports tend to provide too little or too much information. Third, the
framework will include a generic visualization for program paths, a
core part of many static analysis tools' defect reports. While some
tools include simple path visualization, our framework will aim for
far more effective interfaces by applying information visualization
principles.